New Jersey Business/Industry/Science Education Consortium Teacher Improvement Project

Through a program of summer internships in industry followed by a range of academic year activities, secondary school science teachers from New Jersey schools will be given an opportunity in this program managed by the New Jersey Business/Industry Science Education Consortium to bring up-to-date applications of science into their classroom teaching. Forty teachers in each of the next three years will be placed in carefully designed summer internships in industry or in some of New Jersey's Advanced Technology Centers, joint industry/academic centers working in forefront areas of technology. The majority will be placed in smaller industries, since this represents an important segment of the technological community often not as much involved in work with schools as some of the larger industries. All the teachers will work with academic and industrial scientists in the follow-up activities to develop new teaching activities and materials, particularly emphasizing a "hands-on" approach. Cost sharing by the partners will total 100% of the National Science Foundation funding.